West Virginia Cluster Computing Grid

This proposal from an EPSCoR state, facilitating partnerships among several organizations (Institute for Scientific Research, Inc. (ISR), West Virginia University (WVU), Fairmont State College (FSC), and Alderson-Broaddus College (AB)), seeks to acquire a production quality cluster computing grid that will link the state's colleges, universities, and research institutions. The work aims at performing collaborative research in various areas, including:
a. Grid Computing,
b. Scientific Data Visualization,
c. Virtual Environments and Haptics,
d. Algorithm Development for Solution of Integral Equations, and
e. Modeling and Simulation in Material Science and Chemistry.

With the cluster computing grid, the project will introduce educators and students to cluster and grid computing, attracting CS, biology, chemistry, physics and engineering students. Aiming at training and retraining future generations, the project should particularly impact the bio-informatics programs while enhancing interdisciplinary and collaborative research efforts